Presidential Faculty Fellow

WPCJ 2 B P Z Courier 10cpi 3| x K x 6 X @ 8 ; X @ HP LaserJet IIID - BACK HPIIIDB.PRS x @ , \ , j 5{X @ 2 < V J Z Courier 10cpi ? x x x , {^ x 6 X @ 8 ; X @ HP LaserJet IIID - BACK HPIIIDB.PRS x @ , \ , j 5{X @ 2 6 8 F ` H < 3| x 3 ' 3 ' Standard 3 ' 3 ' Standard rJet IIID < 9353149 Pemantle Robin Pemantle plans to continue his research on tree indexed processes and correlation inequalities and to begin work on stochastic models for financial markets. He also plans to develop a mathematics liberal arts course for non mathematicians and is working on a restructuring of mathematics courses for elementary school teachers. This Presidential Faculty Fellow award to Robin Pemantle is for excellent research and teaching in probability. The recipient is also working in mathematics education. ***